Polymer Interface Induced Spin and Dipole Ordering

The Analytical and Surface Chemistry (ASC) program of the Division of Chemistry supports the research program of Professor Peter Dowben of the University of Nebraska-Lincoln. Prof. Dowben and his coworkers investigate the adsorption and desorption of molecular adsorbates on self assembled organic layers and crystalline polymers. The goal of the project is to apply new understanding of polymer interface chemistry and polymer interface magnetic and electric dipole ordering to the design of novel organic multilayer electronic devices built using adroit combinations of polymers and large organic and metal-organic compounds. The research program provides excellent training opportunities to students and postdoctoral researchers in basic research which is highly relevant to the microelectronics industry.